A Planning Grant for Assessment and Plan Development of the Science, Technology, Engineering and Mathematics (STEM) Curriculum and Infrastructure at Windward Community College

With NSF support, Windward Community College (WCC) will conduct an assessment of its science, technology, engineering and mathematics (STEM) curriculum and infrastructure, and develop an integrated institutional plan to improve and enhance WCC's STEM curriculum and infrastructure. The proposed 12-month effort will be divided into three phases: Phase I - Development and application of assessment tools for evaluation of WCC's STEM curriculum and infrastructure; Phase II - Development of a long-term integrated STEM enhancement plan including assessment instruments to evaluate progress; Phase III - Identify resources and secure support to implement the STEM institutional enhancement strategies.